Relativistic Electron-Photon Interactions in the Atomic Field

Several theoretical investigations into processes of high energy atomic physics are undertaken to elucidate the interactions of photons with correlated atomic structures. The study yields a better understanding of relativistic, retardation and higher multipole effects in regimes where they become comparable or dominate electron correlation effects. A number of the proposed studies will be useful in the interpretation of experiments being carried out at third generation light sources.